Industry/University Cooperative Research Center for Biosurfaces

9312556 Baier This award provides funding for the first year of a three-year continuing award for support of an evaluator at the State University of New York's (SUNY) Industry/University Cooperative Research Center for Biosurfaces. The Principal Investigator is a well qualified evaluator and has satisfactorily performed this function in the past. The Program Manager recommends the State University of New York, Buffalo be awarded $8,000 for the first year of a three-continuing award.